Computational and Applied Processes in Linear Algebra (Mathematical Sciences)

The questions which are raised in this project represent three topics of research interest: (1) The solution by parallel iterative algorithms of large scale linear, singular and nonsingular, systems of linear equations. (2) Characterizations of trajectories of linear differential systems which are constrained to reach a cone, their application to control systems, and their approximation by difference equations. (3) Perturbation of the Perron eigenvalue and eigenvector of essentially nonegative matrices and their relationship to generalized inverses of M-matrices. The linkage between these topics is that the investigator's interest in them has evolved from his main line of research to date which is iterative methods for solving linear equations. For example, an important concept which underlies (2) is the comparative rate of growth of the powers of a matrix on its different eigenspaces. With regard to (3), nonegative matrices play an important role in the study of sufficient conditions for the convergence of iterative techniques, as can be evidenced from some of the problems posed in (1).